Laser Radar Performance and Improved Beam Alignment

Research is proposed to calculate the statistics of the coherent lidar power for a real monostatic lidar system, including the effects of refractive turbulence and detector geometry. Analytic expressions for the average coherent lidar power for an idealized lidar system operating in the atmospheric boundary layer will be calculated to determine system performance. Various detector geometries will be considered to investigate the performance of detector arrays and to test the hypothesis that beam alignment methods based on the effects of refractive turbulence are superior to present methods. The alignment constraints for a monostatic system with refractive turbulence will be determined using analytic techniques for idealized systems and numerical simulations for real systems. The simulations will also produce an accurate statistical description of real laser radar signal fluctuations. The different physical mechanisms of laser radar performance will be investigated and the regime where simple analytic results are valid will be determined. The calculations will emphasize the shorter wavelengths of solid state lidar systems. This research will help design the next generation of solid state lidars for remote sensing of the atmosphere.